Summer Program in Solid State Chemistry for Undergraduate Students and College Faculty

The goal of this project is to continue a seven-year old summer program in solid-state chemistry for undergraduate students and college faculty. The concepts and techniques of solid-state chemistry will be examined for integration with the well- established and full curriculum of chemistry based upon molecular concepts. Selected students and teachers will be offered opportunities to interact with solid-state chemists from industry and universities in a program of tutorials, site visits, and summer research. Participants will devote a nine-week period to research on individual projects. Results of these efforts will be presented by each participant in a final symposium.